Collaborative Research: Anisotropy and Mantle Flow Beneath Japan from Seismological Observations and Geodynamical Modeling

Proper characterization of elastic anisotropy can help understand the
causes, mechanisms, and consequences of tectonic deformation in the
upper mantle and in other regions of the Earth's deep interior and
beneath regions of active tectonics. Unfortunately, our
understanding of seismic anisotropy is still unsatisfactory and
interpretation of seismological diagnostics of anisotropy (such as
shear wave birefringence) is often ambiguous. Gaining full
understanding of seismic anisotropy and flow beneath complex tectonic
regions has, therefore, remained an outstanding challenge of modern
seismology and geodynamics. In collaboration with colleagues in
France, scientists from MIT and Colorado School of Mines propose to
meet this challenge through the explicit integration of powerful data
sets and forward and inverse modeling tools. In particular, they aim
to improve the understanding of 3-D seismic anisotropy and tectonic
deformation in the upper mantle near subduction zones, which are
tectonic regions that are of particular societal interest because of
their association with significant volcanic and seismic hazard. They
will focus on Japan, where geophysical instrumentation is dense
because of the need for the continuous monitoring of seismic and
volcanic activity.

Data from these dense networks can be obtained through the internet,
thanks to scientists in Japan, and the MIT-CSM team has already
assembled a large data set from 64 broadband seismic stations.
Through examination of ~12,000 individual seismograms, they compiled
a database of ~1330 high-quality shear wave splitting measurements
for S, SKS/SKKS, and ScS, and more will be added later. They propose
to improve the quantitative interpretation of the splitting maps by
combining two complementary approaches. First, they wish to extend
their numerical modeling of upper mantle flow from 2.5 to 3-D,
incorporating (evolving) velocity boundary conditions and realistic
geometries and rheologies. Second, they plan to develop a novel
technique for tomographic inversion of the observed shear wave
polarizations and split times. The flow models will be used to
design the parameterization and regularization of the inversion, and,
in turn, the seismic imaging results will be used to update the flow
models. Such an explicitly cross-disciplinary approach will not only
yield new insight into the 3-D anisotropy and flow field beneath
Japan. Indeed, the powerful new tools and concepts for data
analysis, modeling, and interpretation can also be applied to data
from such new initiatives as USArray/Earthscope.